The Fork-Join Terabit per Second Router

The Internet is facing two problems simultaneously: we need a faster
switching/routing infrastructure, and we need to introduce guaranteed
qualities of service (QoS). As a community, we have proposals for each: we
can make the routers faster by using input-queued crossbar switches,
instead of shared memory systems; and we can introduce QoS using WFQ-based
(weighted fair queueing) packet scheduling. But we don't know how to do
both at the same time. Until now, the two solutions have been mutually
exclusive - all of the work on WFQ-based scheduling algorithms has required
that switches/routers use output-queueing, or centralized shared memory.

The Fork-Join Router is designed to address both problems. The router is a
very high performance, scalable, fault-tolerant system designed to operate
at multi-terabits per second, yet provide exact support for qualities of
service. The router is highly parallel, and is composed of multiple,
identical, independently operating planes. When they arrive, all of the
packets belonging to the same flow are directed (forked) to the same plane
of the router for processing. Prior to departure, the flows are remerged
(joined) so
as to maintain the QoS of each flow through the system.

Before a fork-join router can be built (as a prototype, or in industry as a
commercial product) some significant questions must be answered: How can
the fork, join and switch scheduling functions be implemented? Our work
focusses on answering these problems.